Endocytosis Mutants: Antigen Processing

Endocytosis plays a fundamental role in a number of processes, including nutrient uptake, growth factor action, antigen presentation and maintenance of plasma membrane composition. Somatic cell genetics has been successfully used to analyze protions of the complex endocytic system. In order to stimulate T lymphocytes, most protein antigens must be cleaved into peptide domains and expressed on the surface of an antigen-presenting cell in association with the products of the major histocompatibility complex (MHC). To provide information about the specific enzymes involved in antigen presentation, mutants of an antigen-presenting cell line which are defective in cathepsin B, an endoprotease, will be isolated by flow sorting. The ability of these mutants to present antigen to T cells will be determined. The putative mutants will be useful in exploring the mechanism of antigen presentation, in reconstituting endocytic processing in vitro, and in analyzing the pathways by which hydrolytic enzymes are delivered to endocytic compartments. Internalization of materials from the extracellular environment (endocytosis) is a fundamental cellular function. Among the important physiological processes that depend upon endocytosis is the processing and presentation of immunogenic foreign substances (antigens) by certain cell types (antigen-presenting cells) to other cells of the immune system. The proposed research will enhance our understanding of how foreign antigens are processed in antigen presenting cells. This knowledge will be important not only from the point of view of the immune response, but also because it will provide further insight into the fate of extracellular materials taken into cells by endocytosis.